Mathematical Problems from Materials Science and Finance

Kohn
0807347

The first two thrusts of this project are topics at the
interface between mathematics, physics, and materials science,
namely (a) modeling the evolution of a crystal surface below the
roughening temperature, and (b) designing new schemes for
"cloaking" regions of space from electromagnetic measurements. A
third thrust lies at the boundary between mathematics and
finance, namely (c) examining the impact on markets of
heterogeneous beliefs or "irrational investors." Concerning (a):
the PI seeks a unification of two widely-used but apparently
distinct approaches -- one based on step dynamics, the other
using a fourth-order partial differential equation. Concerning
(b): the PI continues his recent work on a
change-of-variable-based cloaking scheme; in particular he
explores the design of "near-cloaks," obtained using regular
rather than singular changes of variables, at finite frequency.
Concerning (c): the PI explores how the heterogeneity of
investors' beliefs can lead in some settings to speculation and
market "bubbles."

The project addresses topics where mathematics can have
great impact on other areas of science. Thrust (a) -- involving
the evolution of a crystal surface -- addresses a core topic in
materials science, of great importance for the design and
manufacture of electronic devices. Moreover, its goal is the
linkage of models with different length and time scales -- a
recurring issue in many areas of modern science. Successful
treatment of this example establishes a paradigm that could also
be useful in other settings. Thrust (b) -- involving schemes for
"cloaking" regions of space -- addresses a current frontier in
optics. If the proposed cloaking schemes can be realized in
practice, they will provide a means for making objects difficult
to "see" using, for example, radar. But the PI's focus is not on
device design; rather it is on the fundamental correctness of a
specific "cloaking" scheme recently proposed by other
investigators. Thrust (c) -- involving of heterogeneous beliefs
or "irrational investors" -- addresses a central problem of
modern economics. Real-world markets are complicated, but many
of their key features can be understood using simple models. The
recent "internet bubble" is a reminder that, even in the most
efficient markets, the market price of an asset can greatly
exceed its intrinsic value. The PI explores models in which this
type of behavior is explained by the heterogeneity of investors'
beliefs.